Establishing a Research Site of the Center for Engineering Logistics and Distribution (CELDi) at Clemson University

An Industry/University Cooperative Research Centers planning meeting has been awarded to determine the feasibility of Clemson University joining the existing Center for Engineering Logistics and Distribution (CELDi). The research site focus will be primarily on supply chain logistics and what it entails in the terms of scheduling, delivery, decision-making, and inventory. This will expand and enhance the ongoing research activities of the CELDi Center.